Mathematical Sciences: Knot Theory: New Invariants and TheirTopology

Lin will study various new knot invariants and related topology. In the first part of this project, he intends to put the knot signature into the framework of instanton invariants of 3- manifolds. Considered in the context of an equivariant Floer theory, the signature invariant is expected to provide a new insight into some old problems in knot theory, e.g., the estimate of the unknotting number. In the second part, he will explore the relationship established between knot polynomials and Vassiliev's knot invariants. He anticipates finding a combinatorial construction of knot invariants from Vassiliev's initial data. These knot invariants determine essentially all generalized Jones polynomials derived via quantum groups. He also hopes to get some information about the outstanding problem of finding non-trivial knots with trivial Jones polynomials from Vassiliev's knot invariants. Knots are rather elementary geometric objects whose really interesting properties are topological. By this we mean that two geometric knots do not differ in an interesting way if one of them can be transformed to look just like the other without cutting or untying it, just by pushing its string about to rearrange the crossings. Topologists say that they are two different geometric realizations of the same topological knot. Nevertheless, it is not a trivial matter to recognize when one complicated geometric knot is topologically different from another, rather than just a different geometric realization. This problem can be addressed by computing certain numbers or polynomials which are called "topological invariants," meaning that they always have the same value for different geometric realizations of the same topological knot. The problem would be reduced to pure algebra if there were one invariant which also always had different values for geometric realizations of different topological knots, but life is not so simple -- no single invariant achieves this ideal, nor even all the known invariants taken together. It is therefore valuable to investigate new invariants, some of the most useful being those inspired in recent years by ideas from quantum physics. In particular, applications of knot theory to the biology of long strands of DNA have drawn upon knowledge of these newer invariants.